Conference: Workshop on Dine AI Innovation HUB at NTU

The mission of the NSF Tribal Colleges and Universities Program (TCUP) is to support and strengthen STEM education and research capacity at specific institutions of higher education. The project titled "Workshop on Dine AI Innovation HUB at NTU" aligns well with this mission. Administered by Navajo Technical University, project personnel bring together Navajo Nation leaders, community members, and experts to raise awareness of best practices in artificial intelligence (AI)-mediated systems and in tool development and implementation, and collaboratively develop a framework for a holistic Navajo Nation AI initiative rooted in Navajo culture and place.

The workshop, involving 45-50 people, aims to raise awareness and encourage dialogue on complex AI issues and potential partnership opportunities. Through discussions, participants will establish a shared vision and set priorities for a model of culturally responsible development and use of AI tools and opportunities to support Navajo economic growth, education, health, language revitalization, environmental sustainability, and systems improvement, while safeguarding and promoting Navajo sovereignty, culture, and data ownership.